The Influence of Biogenic Hydrocarbons on Atmospheric Chemical Cycles

9221312 Westberg Isoprene and monoterpenes naturally emitted from vegetation are known to play a significant role in the atmospheric cycles of trace gases such as ozone, carbon monoxide and carbon dioxide. However, uncertainties related to the emission rates of these biogenic hydrocarbons from forests and to the dilution rate of gases within and above a forest canopy prohibit a quantitative understanding of the role these hydrocarbons play in the atmospheric carbon cycle. In this project biogenic emission-fate studies with emphasis on a boreal forest will be studied. This work will be integrated into the Boreal Ecosystem-Atmosphere Study (BOREAS). The PIs will address three tasks set forth in the BOREAS Science Plan: 1) determination of biogenic hydrocarbon fluxes, 2) examination of physical exchange processes, and 3) ambient measurement of trace gases that are important contributors to atmosheric chemistry in the region. The experimental measurement phase of each initiative will involve collaborative efforts between the PIs research group and science teams from other agencies. The biogenic hydrocarbon emission studies will consist of a joint effort between Washington State University (WSU) and the research team headed by Pat Zimmerman at the National Center for Atmospheric Research (NCAR). ***